Macroeconomic Model Building Workshop with Computer Support for Upper Level Quantitative Economics Courses

The project's purpose is to obtain instrumentation to enhance the economics curriculum in the areas of quantitative analysis and macroeconomic modeling. The equipment will provide students the opportunity for "hands on" research experience in upper level departmental courses. The workshop will concentrate on macroeconomic model building with an emphasis on the HOWS II model, an econometric model of the U.S. economy developed in a macro policy workshop over the past few years. The workshop will be located in a specific space on campus and used exclusively by students and faculty involved in upper level economics courses with an emphasis on research oriented and/or model building efforts. The project will support the acquisition of computer equipment for use in the macroeconomic workshop that will continue through the entire academic year and extend through the summer months with a student/faculty research emphasis.